NSF PRFB FY 2023: Investigating proximate mechanisms and ultimate drivers of temperature-dependent development of male:female ratios in reptiles

This action funds an NSF Postdoctoral Research Fellowship in Biology for FY 2023, Integrative Research Investigating the Rules of Life Governing Interactions Between Genomes, Environment, and Phenotypes. The fellowship supports research and training of the fellow that will contribute to the area of Rules of Life in innovative ways. In many reptiles, whether an individual develops as a male or a female depends upon the temperatures that they experienced while developing inside the egg. There is increased urgency to understand the biological mechanisms of this process, as a warming climate will likely influence these processes at both individual and population levels. Even though this developmental system has been studied since the 1960s, we still know very little about how exactly temperature influences this development and the survival of these species. It remains unknown 1) how the same temperature produces opposite outcomes across different species and 2) how temperatures experienced while developing in the egg affect the probability of survival. This research will directly advance our understanding of mechanisms regulating the development of male and female reptiles and will inform conservation efforts aimed at vulnerable populations and species. The fellow will be trained in genomic techniques and modeling and will also broaden participation in science by presenting the research to local schools in an economically disadvantaged area.

The temperature-dependence of female or male phenotype represents a straightforward case of developmental plasticity, in which the temperature experienced during discrete developmental windows dictates this development. Whereas the molecular and genetic responses to similar thermal cues appear to be conserved, the resultant developmental outcomes vary across species. For example, cool temperatures lead to the upregulation of conserved chromatin modifiers in the red-eared slider turtle (Trachemys scripta) and the American Alligator (Alligator mississippiensis), but these temperatures produce males in T. scripta and females in A. mississippiensis. The first objective of this research will use ChIP-seq and ATAC-seq approaches to test the hypothesis that chromatin modifiers interact with different genetic loci across the turtle and crocodilian genome to produce species-specific reaction norms. Second, recent theoretical and empirical data support the idea that incubation temperature-mediated effects on male vs female survival to maturity underlie the adaptive value of developmental plasticity. Using recapture efforts after incubating A. mississippiensis eggs in the lab at different fluctuating temperatures representing future warming scenarios, the second objective of this research is aimed at addressing how increasingly warm climates will affect crocodilian male: female ratios, attendant population structures, and, ultimately the adaptive value of this temperature-dependent developmental plasticity.